Adsorption Behavior and Properties of Tailored Smectites

This Research Improvement in Minority Institutions (RIMI) project will study the effect of tailoring the properties of smectities and potentially other soil and/or clay minerals to produce specific adsorption properties. This research will lead to scientific formulations that can be used to effectively remove specific organic pollutants from aqueous and gas streams. Earlier studies on this problem found that the adsorptive properties of certain materials could be markedly altered over those of the parent material as a function of the type of amine used. This study on the effects of various tailoring agents on various clays with respect to the adsorption of specific organic molecules will provide opportunities for New Mexico State University to strengthen its research capability. The investigators are experienced and well trained in this area. Faculty and students involved in this project will have their research skills enhanced by using several new techniques to manage hazardous waste materials.